Sharp Estimates for Eigenvalues, Integrals, and Sobolev Imbeddings

The author proposes to work on various extremal problems
for functionals which are defined in terms of integrals
or eigenvalues. These problems include: Lieb-Thirring
inequalities for the number bound states of Schrodinger
operators; sharp Moser-Trudinger and Sobolev inequalities
for the CR sphere, with applications to determinants of CR
invariant operators; sharp inequalities for integrals
involving cross-ratios, with applications to zeta functions
of Laplacians on the sphere; sharp inequalities of log-Sobolev
type on the disk, with applications to zeta functions of
Dirichlet and Neumann Laplacians on the disk; dimension
-free Carleson measure inequalities. The research will
touch on important questions arising in differential
geometry, harmonic analysis, and mathematical physics.

It is difficult to understate the importance of eigenvalue
estimates in both applied and theoretical sciences. It is
very often the case that to given physical structures, such
as systems of particles, vibrating membranes, or strings,
one can attach certain characteristic numerical values,
called "eigenvalues". These numbers are important, as some
relevant properties of a given structure can be often coded
into numerical functions of the eigenvalues, called
"spectral functionals". In an extremal problem one tries
to find out which structures of the same type would
yield the highest (or lowest) possible spectral functionals;
very often, they are the ones with exhibit the most
symmetrical geometry.